Formal Foundations of Discrete Geometry

Abstract

Award: DMS-0503447
Principal Investigator: Thomas C. Hales

In 1972, Robin Milner created a proof-checking program LCF (for
"Logic for Computable Functions"). The proof-checking program
LCF and its descendants have been in continual development since
then. These programs have finally reached the level of maturity
that they are capable of checking every logical inference of
extremely complex mathematical proofs.

With a noticeable increase in the number of computer-assisted
proofs in geometry there are dangers that computer code will not
be scrutinized with the same care as traditional proofs. One
solution is for mathematicians to significantly increase their
use of formal methods, particularly when proofs are computer
assisted. The purpose of this proposal is to build the
foundations of discrete geometry within one such system
(HOL-light, short for Higher Order Logic, is one of the
descendants of LCF).

The foundations of discrete geometry will be developed to the
stage where several classical theorems will be formally
established. The theorems to be formalized include Rogers's
bound in sphere packings, and the problem of 13 spheres (the
Newton-Gregory problem).

Traditional mathematical proofs are written in a way to make them
easily understood by mathematicians. Routine logical steps are
omitted. In a traditional proof, an enormous amount of context is
assumed on the part of the reader. Proofs, especially in geometry
and related areas, rely on intuitive arguments in situations
where a trained mathematician would be capable of translating
those intuitive arguments into a more rigorous argument.

By contrast, in a formal proof, all the intermediate logical
steps are supplied. No appeal is made to intuition, even if the
translation from intuition to logic is routine. Thus, a formal
proof is less intuitive, and yet less susceptible to logical
errors.

In the past, formal proofs were not a practical possibility for
mathematical arguments of any significant complexity. However,
technological advances over the past 30 years have made it
possible for extremely complex mathematical proofs to be expanded
into a formal proof. Computers are used to check that every
logical step has been supplied.

This project will establish foundational material from discrete
geometry (especially the topic of sphere packings) from a formal
standpoint.

This is a joint award of the programs in Geometric Analysis and Foundations.